The Computational Intractability of Machine Learning Tasks

This research involves understanding the computational complexity of
fundamental machine learning problems. In particular, the
investigators study which classic learning problems are unlikely to
admit efficient solutions. In terms of broader impact, this line of
research aids practitioners and algorithm designers as it outlines
fundamental stumbling blocks for creating powerful learning systems.
For example, can we reduce difficult open problems from cryptography
(e.g., factoring) and complexity theory (e.g., NP-complete languages)
to certain problems in machine learning? If so, this provides strong
evidence that particular machine learning problems are hopelessly
intractable. Another avenue of research is to prove unconditional
lower bounds on the resources required to infer functions in
restricted learning models.

The intellectual merit of the research lies in finding new reductions
between problems in cryptography and complexity theory-- in particular
communication complexity-- and problems from learning theory. For
example, the PI studies the impact of lattice-based cryptography in
machine learning and examines its implications for the DNF learning
problem. Additionally, the PI researches the use of communication
complexity to rule out learning simple concept classes via small sets
of arbitrary features. We further delineate the role of Fourier
analysis in proving lower bounds in the well known model of
Statistical Query learning. Finally, this research investigates the
relationships between NP-completeness and circuit complexity to
general questions about proper learning and distribution-specific
query learning.